Closure Schemes of the Momentum Equation for Porous Media Flow

A novel approach has been proposed to obtain closures for the Reynolds stress (i.e., hydrodynamic dispersion) and the interphase drag force terms for moderate-to-high Reynolds number flow in packed-sphere beds. The approach is to obtain closures based on a judicial application of the method of matched asymptotic expansions for flow over a simple geometry (which is a sphere in this case) at different flow regimes. The inner solution will be used to evaluate the interphase drag force while the outer solution will be used to evaluate the Reynolds stress terms. With this approach, explicit expressions for these terms as an asymptotic series of the Reynolds number can be obtained. The adjustable constants in the asymptotic series, which will take into consideration the effect of the interaction of spheres, will be determined by a comparison of theory and experiments on pressure drop data. The success of this research may open new avenues of research for fracture media flow in petroleum and geothermal reservoirs, as well as for flow over rod bundles in nuclear reactors.